Mathematical Sciences: Program in Mathematics and Molecular Biology

9406348 Cozarelli The Program in Mathematics and Molecular Biology (PMMB) promotes the discovery and expansion of the applications of mathematics, including statistics and computer science, to molecular biology Because of its precise measurement techniques, molecular biology appears now in the position that physics was a century ago, ready for an explosion of productivity and new insights arising from interactions with mathematics. Although administered through the University of California at Berkeley, this is a Program without walls, a group unified by a common goal. PMMB enables the collaboration of experimental biologists with mathematicians, professions often viewed as disparate. PMMB members apply state-of the-art mathematics and computational techniques to the design and analysis of biology experiments. PMMB provides a forum for mathematicians and biologists with interesting problems and a commitment to the application of mathematics to molecular biology. The Program uses three major mechanisms to achieve this interdisciplinary collaboration. (1 ) An active fellowship program and well-attended annual scientific meetings draw particularly the younger scientists into the area of study and provide support for interdisciplinary training. (2) The Program actively promotes the education of the general mathematical and biological audiences on the potentialities of the field through presentations and tutorials at national meetingst focused small meetings, individual seminars, courses, and didactic articles. (3) The Program provides modest direct support for interdisciplinary studies by the members, their students and postdoctoral associates, fostering a network of interactions among the members for productive collaborations.